Collaborative Research: WoU-MMA: IceCube Data Analysis in the U.S. 2026-2029

The IceCube Neutrino Observatory has opened a new window on the Universe and created a new
branch of astrophysics. IceCube is an unconventional telescope which consists of sensors embedded
in nearly 1,000 megatons of deep, clear Antarctic ice near the geographic South Pole to detect subatomic
particles called neutrinos. As the world’s largest operating neutrino detector, IceCube forms
a cornerstone of the United States Antarctic Program. Neutrinos can offer a glimpse into some of
the most energetic processes in our Universe, including the dense cores of astrophysical objects from
which visible light may not be able to escape. Since construction of IceCube was completed in 2011,
IceCube has discovered high energy neutrinos from outside of the Milky Way galaxy, as well as neutrino emission
from the plane of our own Milky Way. It has coordinated observations with other types
of telescopes, including gamma ray satellite observatories and ground based optical telescopes to
identify and study their origins. It has also used the instrument to study properties of neutrinos
themselves. In addition, IceCube monitors the sky for supernovae originating from within our Galaxy.
This physics program now spans ten orders of magnitude in neutrino energy. The award provides
funding for scientists at U.S. universities to continue to analyze IceCube data, capitalizing on the
large investment in this groundbreaking NSF major facility.

This grant provides funding for scientists at U.S. universities to analyze data from the IceCube
Neutrino Observatory. Since construction of the IceCube was completed in 2011, IceCube has detected
a flux of high energy neutrinos of astrophysical origin with an energy spectrum extending to greater
than 10 PeV, and established neutrinos as a key component of multimessenger astrophysics. The
key to IceCube’s success is not merely the accumulation of data over time. Intensive calibration activities
and continuous innovation in analysis methods have enabled it to exceed the initial design
sensitivity and even expand activity into new areas of inquiry. The IceCube physics program now spans
ten orders of magnitude in neutrino energy. In the austral summer of 2025-2026, the collaboration installed the
IceCube Upgrade, the first major addition to the hardware in 15 years. The resulting enhancement
to low energy sensitivity will establish IceCube as the leading instrument in neutrino oscillation
physics until after HyperK commences data taking in 2028. In addition, calibrations enabled
by the Upgrade have the potential to increase the power of the extensive existing dataset through
improved reconstruction and reduced systematics. An intensive collaborative effort will be required
to perform the calibration studies and develop the reconstruction algorithms required to realize its
transformative scientific potential. In addition to the effort required to fully realize the power of
the new hardware, this funding will allow the collaboration to continue to more fully exploit the
data through the use of new techniques such as neural networks. With the ongoing data collection
by IceCube and the enhanced dataset produced by the Upgrade, the project will continue to pursue further
identification of neutrino sources both with IceCube data and with multi-messenger studies,
extending neutrino astronomy higher and lower in energy, characterizing the diffuse neutrino flux,
exploring the fundamental properties of neutrinos, monitoring the Galaxy for supernova explosions,
and searching for signals of physics beyond the standard model.